DMREF: Collaborative Research: Discovering Insulating Topological Insulators

Non-technical abstract:
At the heart of electronic devices lies silicon, a semiconductor material that can be made
pure enough for high performance and is amenable to mass production. While such
circuitry is continually improving, silicon is unable to exhibit quantum phenomena
required for complete solutions in weather prediction, genomics, and secure encryption.
A new class of materials, the so-called topological insulators, holds the promise to
realize such phenomena and revolutionize computing. Topological insulators are, in
theory, non-metallic in the interior of the material but behave like a metal at the surface.
In addition, the quantum character of these metallic electrons can be switched, which is
the basic information processing function. While known topological insulators
demonstrate the metallic surface state, these materials have not been made pure enough
for incorporating into electronic devices. Specifically, they are not yet insulating in the
interior. This project will seek to find new topological insulators and to engineer them to
levels of purity needed for an insulating interior and satisfy the performance demands of
electronic circuits. The project will impact the electronics industry as well as train
graduates skilled in the computational and experimental techniques of this new class of
materials.

Technical abstract:
The goal of the project is to create topological insulator materials that are pure enough in
the bulk to exhibit true insulating behavior. Topological insulators are found among
high-Z atom containing semiconductors with band gaps small enough that the spin-orbit
coupling related to the large Z-number can invert the conduction and valence band.
These materials must also possess spatial inversion symmetry for the relevant orbitals.
The project will explore candidate materials classes among pseudo-binary and
pyrochlore-related structures containing heavy metals such as Ir, Re, and Os. Materials
synthesis by solid state chemistry techniques will be guided by simulations based on
density functional theory. Promising candidate materials will be synthesized in single
crystal form by appropriate methods including vapor transport, zone refinement, and
growth from flux. Crystalline specimens will be studied with angle resolved
photoemission spectroscopy and conventional charge transport techniques. Prototype
transistor devices will be fabricated on a smaller subset of these systems. The results at
each measurement stage will be fed back to the theory and synthesis efforts.